The Sloan Digital Sky Survey

AST-0096900
Peoples, John

The Sloan Digital Sky Survey project is a major inter-agency and private-foundation partnership funded ground-based effort to map 10,000 square degrees of the sky at a spatial resolution of 0.40 arcseconds in the spectral bands at: 0.35, 0.48, 0.62, 0.76 and 0.91 micrometer wavelengths with an SNR of 10 for 22.3 stellar magnitudes at 0.62 micrometers wavelengths. The survey goals are to record 900,000 field galaxies down to red magnitudes of 17.7. Further details of this ambitious survey are given at: http://www.astro.princeton.edu/PBOOK/intro/intro.htm . Three aspects of the project will be supported in whole or in part over a five-year period. These are Observing Systems (salaries and maintenance), Data Processing and Distribution, including data distribution and data base user support, and salaries for observers and telescope/instrument specialists. Continuation of the observing program to acquire scientific data and the preparation of that data to enable general access by the broad astronomical community are the primary thrusts of this effort.
***